Residual Strength of Delaminated Composite Panels Under Compressive Loads, Award in Indian Currency

Description: This project provides for collaboration between Dr. J.N. Reddy of the Virginia Polytechnic Institute and State University (VPI), and two scientists from the Indian Institute of Science (I.I.Sc.) in Bangalore, Drs. A.V. Krishna Murty, and Vijay Kumar. These scientists will continue theoretical, analytical studies on the behavior of laminated composite panels under compressive loads. Specifically, they are seeking to develop analytical tools to describe the process of delamination in such panels. These studies will, furthermore, be useful in determining residual strength of these plates. The collaborative work will benefit from experimental work being done independently by the Indian team at the I.I.Sc. Scope: This project provides support to extend collaborative research currently being carried out by the same scientists under an earlier NSF grant. The work has already provided better understanding of the problem, and resulted in several joint publications. The project fits well with the objectives of the U.S.-India Cooperative Science Program.